Dissertation Research: Middle Paleolithic Technology in A Semi-Desert Habitat

New evidence has been discovered recently that indicates the presence of archaic Homo sapiens sapiens in southern Africa during the Middle Paleolithic. This is many years before the appearance of modern human beings in Europe and Asia. There are also indications that these prehistoric peoples had a more developed foraging adaptation characterized by blade and burin stone tools than had previously been expected. During this project, the researcher will analyze the spatial organization of Middle Paleolithic hunters in the Zeekoe valley of South Africa. She will analyze the changes in settlement pattern that occurred during the last Interglacial and establish a time scale and sequence of changes in stone tool design based on materials collected from the Driekoppen Rockshelter and a series of open air sites. This project will enable the researcher to establish which tool types are the most diagnostic time-markers for this region and period. The establishment of regional chronologies is becoming increasingly important in paleoarchaeology. Without good chronological controls, little can be said about the development of modern human culture.